Rational Fascists: The Political Geography of Early Nazi Party Membership

This project develops and analyzes a longitudinal data set on the political geography of Nazi Party membership in Weimar Germany. Names of more than 31,000 early Nazi members will constitute the data set when completed. The data will permit test of hypotheses derived from rational choice models of behavior, to assess the adequacy of that type of explanaiton for political extremism. The storage, cleaning and checking, restructuring, maintenance, and analysis of data will make a valuable resource for secondary analyses of Nazi membership records.